Exploring for Consensus on Major Problems in Education

9409794 Hiatt American Academy of Arts and Sciences Exploring for Consensus on Major Programs in Education The American Academy of Arts and Sciences will convene a national conference entitled Exploring for Consensus on Major Programs in Education. This two and one-half day conference builds on the Initiatives for Children efforts to develop ties among researchers, practitioners and policy makers working for systemic reforms in education. Although not exclusively tied to mathematics and science, the conference has the purpose of improving the quality of teaching and instruction in secondary schools. The expectation is that the stature and expertise of the assembled group will result in recommendations of national import and that the stature of the Academy will insure wide interest in the dissemination of the findings. Fifteen to twenty participants drawn form all regions and related interests are expected to attend. A document representing the consensus of the participants will be available to all groups concerned with secondary education ranging from policy-setting agencies to individual classroom teachers. Although some expenses are absorbed by the center, there is no specific commitment to cost sharing. ***